1998 Solid State Sciences Forum, Washington, D.C., Fall 1998

9802308 Morgan The Solid State Sciences Committee of the National Academy of Sciences proposes to hold its next Forum entitled "The Science of Materials - Strengthening the Foundations of Technology and Innovation" in 1998, to coincide with the completion of the National Research Council's decadal assessment of the field of condensed-matter and materials physics (CMMP). The format of this Forum will be a two-day meeting, held at the National Academy of Sciences in Washington. The Forum will open with a keynote address by a prominent policymaker to be identified and will continue with perspectives from agency, industry, university, and government laboratory leaders. The CMMP report will be prominently featured, with presentations on condensed-matter and materials physics and its role in U.S. technology, the current status of the field, and the scientific and technological opportunities for the future. %%% The Solid State Sciences Committee of the National Academy of Sciences proposes to hold its next Forum entitled "The Science of Materials - Strengthening the Foundations of Technology and Innovation" in 1998, to coincide with the completion of the National Research Council's decadal assessment of the field of condensed-matter and materials physics (CMMP). The format of this Forum will be a two-day meeting, held at the National Academy of Sciences in Washington. The Forum will open with a keynote address by a prominent policymaker to be identified and will continue with perspectives from agency, industry, university, and government laboratory leaders. The CMMP report will be prominently featured, with presentations on condensed-matter and materials physics and its role in U.S. technology, the current status of the field, and the scientific and technological opportunities for the future. ***